Conference Support: Sixth East Coast Operator Algebras Symposium, October 11-12, 2008

Abstract
Higson

The proposal is for partial support of the East Coast Operator Algebra Symposium (ECOAS). The ECOAS conference series has several objectives. One is to help young researchers in operator algebras broaden their acquaintance with the field. Another is to help acquaint them with senior researchers in operator algebra theory (among them possible future colleagues, mentors and collaborators). With these goals in mind, the ECOAS series places a heavy emphasis on attracting young researchers to the meetings and giving them opportunities to present their work and otherwise interact with established figures. In the conferences in the series so far, over half of the participants and a substantial number of the speakers have been students or postdoctoral fellows.